Synthesis of Electrically Conducting Polymers by Photopolymerization

Electrically conducting polymers may be synthesized using photochemical rather than chemical electrochemical means. A new process involves illumination of an aqueous solution containing pyrrole and a electron acceptor with ultraviolet light. Absorption of the light induces electron transfer from the pyrrole to the electron acceptor, thereby promoting polymerization of the oxidized pyrrole monomer. The resultant polymer is a highly conducting film which adheres strongly to the substrate. The process is fast and simple and lends itself to the deposition of conducting polymer films onto non-conducting substrates. It may be useful in the manufacture of electrochromic displays, rechargeable batteries, electrochemical sensors, and electromagnetic shielding. Photopolymerization may have an advantage over current methods of conducting polymer synthesis in being more suitable for industrial-scale manufacture. The research will investigate synthesis by photopolymerization and characterize the properties of photo-deposited conducting polymers with respect to their conductivity, adherence to the substrate, and their stability.